Thermodynamics of Nonhydrostatically Stressed Solids and Interfaces

This project continues research begun on DMR-8521485 concerning the thermodynamics of solid crystalline materials subjected to general states of stress. The work is divided into two phases: (1) development of a self-consistent thermodynamics of crystalline solids and interfaces, including metals and ceramics, that explicitly accounts for mass transport, elastic deformation and the surface excess quantities associated with a curved interface between two phases; and (2) examination of the effect of coherency strains in phase equilibria in two-phase crystalline solids. The work is expected to provide a set of thermodynamic bulk and interfacial conditions appropriate for the continuum study of first-order phase transformations, phase equilibria and microstructural evolution in solids.